Reduction of Friction by Means of Vibrations in Slider-CrankMechanisms (REU Supplement)

The friction and vibration and their interaction in slider- crank mechanisms will be studied. Experimental results will be supported by analytical models based on EHD lubrication for the slider and mixed lubrication for the rings. The possibility of affecting and controlling friction by imposing vibrations on the system will be evaluated.